SGER: Intelligent Patent Analysis for Nanoscale Science and Engineering

Proposal Number: 0311652
Principal Investigator: Chen, H.
Affiliation: U Arizona
Title: SGER - Intelligent Patent Analysis for Nanoscale Science and Engineering

The exploratory project is to find a method for effective patent analysis and investigation in the area of nanoscience and technology.